Non-Linear PDEs from Spectral Theory and Conformal Geometry

Gursky
Proposal DMS-9801046

The research proposed is concerned with the study of fourth order
problems which arise in spectral theory, and involve: existence and
regularity questions for non-linear partial differential equations,
asymptotics of an elliptic equation which arises in conformal geometry,
and its relation to the determination of the best constant in a
Sobolev imbedding.

The need for the study of partial differential equations is due to
their central importance in every manner of "real world" problems: from
CAT scan machines to the spread of diseases, from jet engine design to
computer visualization. The work supported by this grant is concerned
with some basic questions about "fourth order" equations, a field that has
a lot of open and very interesting questions, and the relation of these
equations to other fields of mathematics, especially geometry.